Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, will apply methods from combinatorics and convexity to problems in computational algebraic geometry. A goal is to design new algebraic algorithms for solving sparse multivariate polynomial equations. Other projects include the study of fiber polytopes, intrinsic Grobner basis theory, hard Lefschetz theorem for toric varieties, generalized hypergeometric functions, and geometric invariant theory. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.